Analytic Properties of L-functions

The principal investigator intends primarily to pursue the goal of
attacking some of the fundamental problems of the Langlands program by
means of analytic methods. He is most interested in the case of base
change for holomorphic forms on GL(2) where a non-soluble base change is
involved, but the proposed methods should work much more generally.
At present the intention is to permit the use of the Riemann Hypothesis
(in an appropriate setting) to achieve this goal. A second goal of the
proposal is to study some of the fundamental analytic questions on
L-functions.

This proposal is ultimately concerned with finding methods to solve
equations. Since the nineteenth century it has been known that certain
equations have formulas (like the quadratic equation and the cubic
equation) but that most do not. The cases that interest me are the
equations with ordinary integer coefficients. It has become apparent in
the last fifty years that there should be a completely different way of
studying these general equations by using methods from analysis
(i.e. derived from calculus) rather than by using methods from algebra.
The idea is to describe and prove many properties of the solutions (which
still exist even though there may be no formulas for them).